An Experiment and Project-based Facility for Computer Science

The university is developing a computer science laboratory to provide students with hands-on project experience in the areas of computer hardware, operating systems, and software engineering. This laboratory also gives faculty opportunities to collaborate with other universities and the capacity to explore several innovative teaching techniques.